Evaluation of the Quality of Fresh Concrete by Ultrasonic Means

This proposal will investigate the application of ultrasonic waves of high frequency to determine concrete physical properties before and after placement in the forms. The objective is to determine the best method of placing concrete through quality assurance and quality control of fresh concrete.